Planning Grant: I/UCRC for Center for Healthcare Organization Transformation

IIP 0968971
Pennsylvania State University
Nembhard

The Pennsylvania State University (PSU) has recently launched the Center for Integrated Healthcare Delivery Systems (CIHDS) and plans to join the Industry/University Cooperative Research Center (I/UCRC) entitled "Center for Health Organization and Transformation (CHOT)" which currently is a multi- university center comprised of Texas A & M (lead institution) and Georgia Tech. CHOT was established in 2008 to "conduct mixed methodology, applied research on the antecedents, execution, and effects of transformational interventions and strategies that combine evidence-based management, clinical and information technology innovations, and on-going organizational learning and ccultural change" in healthcare systems.

PSU will serve as a catalyst for transformational change in US healthcare delivery through a focus on quality, efficiency, and effectiveness of care processes and the integration of these processes with health information transformation technologies into a modern coordinated system.

The proposed site will develop transformative approaches, demonstrate them in its partner healthcare organizations, and disseminate evidence-based approaches to regional and national healthcare CEOs, CFOs and CIOs. The proposed site will conduct interdisciplinary research with the theme of healthcare process excellence. CIHDS' core faculty have already developed a strong history of working collaboratively across multiple units, engaging healthcare providers as partners in applied research, and working closely with students to address research needs of the relevant industry partners. The wide scope of participation (expected from the potential members of the site) will enhance dissemination of results. Dissemination is also expected to occur via professional and academic associations and conferences, and special symposia. The proposed site plans to engage students and partners from diverse and/or under-represented groups.